Chemically Induced Protein Release from Various Cells

Mechanical disruption of cells is a process currently used industrially to obtain recombinant DNA proteins from bacterial and yeast cells. This method yields a viscous solution that contains the product, cell fragments, nucleic acids, and cellular proteins. Numerous problems including the clarification of the solution, removal of the nucleic acids, and elimination of the extraneous proteins are incurred to obtain the desired product. This research intends to study the use of a chemical means of removing proteins from bacterial and yeast cells. Various mixtures of Triton X100 and Guanidine HC1 are to be sed to do this. Such a method should provide for a more easily clarified solution, an elimination of the nucleic acid removal step, and an enhanced product recovery yield. However, different methods of incorporating this step into an overall production process have not been carried out. The objective of this study is to provide methods for doing this.